CAREER: Designing an AI Coach to Support Creative Thinking, Physics Learning, and AI Literacy in Middle School

Many students experience physics as abstract and difficult, which can limit their confidence, interest, and continued engagement with science, technology, engineering, and mathematics (STEM). At the same time, generative artificial intelligence (GenAI) tools are becoming more common in education, raising important questions about how they can support learning while keeping students actively engaged in thinking, designing, and problem solving. This project will study how a GenAI coach can be designed and integrated into a digital physics sandbox learning environment to support middle school students as they create, test, and revise their own physics-based simulations. The coach will assess the creativity of students' designs and provide feedback and guidance to help students develop ideas, refine their work, and connect their designs to underlying physics concepts. The project will produce knowledge that can inform how AI tools are designed to support both creativity and science learning, and provide practical guidance for educators and developers of AI-powered learning environments.

The project will develop and evaluate a GenAI coach within Physics Playground, a two-dimensional sandbox learning environment for Newtonian physics. The five-year project will design an AI coach to assess creativity and provide targeted support for students' physics-based design work, and will examine whether the coach produces valid estimates of student creativity. The project will also study how students engage with the coach during design activities and what effects it has on creative performance, physics learning, and understanding of AI. A co-design process will engage students and teachers in developing the coach's feedback style, learning supports, and safeguards to ensure responsible and appropriate AI use in the classroom. Following the co-design phase, studies will assess whether the coach produces valid creativity assessment, examine how students use and respond to the coach in practice, and measure the effects of coaching on student learning and creative performance across study conditions. The expected contributions include design principles for AI-supported science learning, methods for assessing creativity in open-ended digital environments, and evidence about how AI coaching can support creative problem solving and conceptual learning in STEM.

The Faculty Early Career Development (CAREER) program is a National Science Foundation (NSF)-wide activity that supports early-career faculty who have the potential to serve as academic role models in research and education. This CAREER award is supported by the STEM K12 Program and is co-funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.